Secure and False-Tolerant Distributed Computing

The purpose of this project is to design, prove, and implement efficient distributed algorithms to perform a variety of network computations securely and with high fault-tolerance. The security of interactive and distributed computations is a natural and extremely relevant issue to the current, highly interconnected world. Computations distributed among several interacting processors provide greater reliability and security than centralized computations, which are prone to failure and malicious attacks. Large networks can employ redundancy to correct errors, and it is easier to ensure - and more reasonable to believe - that a majority of processors are correct than that a particular processor remains absolutely invulnerable. The goal is to replace centralized computers (name servers or authentication servers, for example) by fast, interactive computations that obviate the need to trust a given host. The project will prove the protocols secure and fault-tolerant using a new set of formal methods the researcher has developed to define and prove security in distributed systems. These formal methods capture intuition clearly, provide concise and modular proofs, and have already been demonstrated useful in finding flaws in seemingly secure (and even published) protocols. The project's standard of efficiency is stricter than just requiring polynomial or polylogarithmic upper bounds. The researcher is implementing the protocols to judge their efficiency, to demonstrate their utility, and to determine the factors that are relevant in an applied setting.